CEDAR: Continue Upgrading the Facilities/Jicamarca Radio Observatory and to Add Peruvian Staff Scientist

The PI's two main purposes in this proposal are: (1) to add a Peruvian scientist (Dr. Carlos Calderon) to the Jicamarca Radio Observatory staff, and (2) to continue upgrading the data taking and processing equipment. The focus in equipment upgrades will be placed on interfacing both new and old receivers with the Harris Night Hawk computer and CSPI array processor.